Presidential Young Investigator Award

This is a Presidential Young Investigator (PYI) award. The research involves experimental and analytical studies of the chemistry and properties of geologic fluids. Specific objectives of the project include (1) determining compositions of natural geologic fluids by studying the microscopic fluid inclusions found in minerals from various environments, (2) experimental studies of the pressure-volume-temperature- composition (PVTX) properties of fluids representative of those found in natural samples, and (3) studying the mechanisms of formation and re-equilibration of natural fluid inclusions. The results of these studies will advance our understanding of the important role of fluids in controlling physical and chemical environments in the earth.